NSF-BSF: Photon Emission from Lanthanide Impurities in Layered Magnetic Thiophosphates

Nontechnical description

This project investigates new materials that combine light and magnetism to enable advanced information technologies. Light-emitting ions called lanthanides are vital components in modern photonics, but they are normally quite insensitive to their surroundings. Their light output is therefore not easily tuned. This project is designing new materials that break this limitation by embedding lanthanides inside of layered magnetic crystals. In these specialized materials, the crystal can influence the lanthanide and allow its light output to be controlled using small external magnetic fields. Beyond the laboratory, this project strengthens international scientific cooperation between the United States and Israel through joint research and shared student training. The project prepares a globally competitive science and engineering workforce by providing advanced training to graduate students and postdocs, while introducing undergraduate students to their first research experiences. The project also includes outreach activities designed to engage the public and broaden participation.

Technical description

The scientific objective of this project is to establish foundational structure-property relationships for defect-engineered spin-photonic functionalities in layered magnetic materials. The research team introduces lanthanide ions with open f-shell electronic configurations as luminescence activators into layered transition-metal thiophosphates, including chromium, manganese, nickel, and iron thiophosphates. The project addresses the challenge of engineering strong electron-exchange interactions between localized dopant states and the collective magnetic order of a host crystal. The research goals include determining how intralayer magnetic-exchange interactions control luminescence energies and polarizations, exciton diffusion dynamics, and impurity spin splittings. The experimental approach integrates materials synthesis, optical spectroscopic and photophysical measurements, and optically detected magnetic resonance, paired with electronic-structure calculations and modeling. By combining lanthanide doping with diamagnetic cation alloying, the project interrogates the microscopic processes that dictate the coupled spin and optical properties of both doped and undoped layered van der Waals magnets. This project aligns with the Electronic and Photonic Materials program by discovering new photophysical phenomena in advanced materials and expanding the capabilities of layered materials with strongly correlated electrons for future spin-photonic technologies.